Cyber Service Training and Education

This project relieves the shortage of qualified information assurance personnel by providing
generous financial support for graduate/undergraduate students as participants in a rigorous academic program. The highlights of the program include: faculty committed to working with undergraduates in a research environment, immediate integration of students in existing research programs in information assurance, and a cyber research seminar emphasizing critical thinking, leadership, and communication skills. The program includes expanding horizons seminars presented by experts in the field of information assurance and an ethics component, in the form of an integrated sequence of lectures and discussion. The goal is to develop professional skills through mentoring, training, and experience.